Collaborative Research: Portal to Current Research: Life in Extreme Environments

In this Communicating Research to Public Audiences (CRPA) project, the University of Washington and the Pacific Science Center (PSC, Seattle) are highlighting the results of PI Kelley's active research discoveries about deep-sea life located on active hydrothermal vents of the ocean floors (NSF award OCE 0426109). The STEM content of this project includes oceanography, marine biology, and ecology. The project team will develop a multimedia, interactive kiosk exhibit that builds on the existing Portal to the Public project at the PSC. Kelley's graduate students are actively involved in the exhibit and outreach components of this CRPA. The target audience for 'Life in Extreme Environments' is the ~800,000 U.S. and international visitors to the PSC, which also includes a significant number of urban, underserved minorities. This CRPA project is a component of the existing Portal to the Public exhibit. After 'Life in Extreme Environments' ends at the PSC, this exhibit kiosk will be made available to other scientists to promote research and related topics in their respective disciplines. The exhibit is being fabricated and evaluated by the staff at the Pacific Science Center.